Symposium H: 3D Nanoengineered Assemblies, Boston, MA, December 2-6, 2002

"Symposium H: 3D Nanoengineered Assemblies", to be held in the context of the 2002 Materials Research Society (MRS) Fall Meeting in Boston, MA, during December 2-6, 2002. The Symposium will provide a forum for scientific and technical exchange to advance the practice and progress of nanoengineering in three dimensions. The symposium will explore 3-D processing techniques with the promise to transport or modify material on the nanometer scale, as alternatives to conventional 2-D techniques.

The technologies to be addressed include soft lithography, self assembly, biological or biomimetic-based processing, atomic manipulation using scanning probes, as well as non-contact methods such as holography, nonlinear optical processes, particle beam material interactions, and materials manipulation with an eye on developing 3-D nanoengineered systems and embedded 3-D nanostructures with nanometer scale resolution.